Central Washington University Connection

Central Washington University is establishing a connection to NSFNET via a 56,000 bits per second line. The connection enables the faculties and students to communicate and collaborate with the international scientific and educational community, and to access network resources such as libraries, databases and supercomputers. This award funds part of the costs for two years.